NSF FF: Planning: Fostering AI Literacy in Elementary Education Through Game-Based Personal Finance Learning: A Community Co-Design Approach

This FINDERS Foundry award supports a game-based digital platform that uses personal finance decision-making to developing AI literacy in elementary students. The platform teaches students how AI makes recommendations and how to make smart financial choices by exploring everyday scenarios such as saving, budgeting, and comparing options. Educators, families, and technologists will co‑design the platform so the games are age‑appropriate, fun, and aligned with financial‑literacy standards. The project aims to help students understand when to trust AI, when to ask questions, and how to make informed decisions in real‑life situations. By blending AI literacy with financial learning, the project prepares students for lifelong responsible decision‑making.

This FINDERS Foundry award aims to increase financial and AI literacy in elementary students. The platform will position personal finance as an applied mathematical and civic context through which elementary students can understand how AI systems use data, generate recommendations, and require human questioning. Using narrative-driven simulations and scenario-based gameplay, students will engage with personal finance standards, including consumer awareness, budgeting, and savings, within contexts that make visible how AI systems influence financial decision-making. Students will encounter in-game AI agents that make recommendations, enabling them to practice evaluating, questioning, and responding to AI-generated input in developmentally appropriate ways. The work will establish foundational design principles for AI‑supported financial‑literacy instruction that is accessible, appropriate, and responsive.